High-Power HF Magnetospheric, Ionospheric, and Atmospheric Radar Facility

9318665 Duncan An International Radiophysics Consortium is initiating long-range facility, making use of existing and upgraded high-power HF transmitting and receiving systems in Russia and Ukraine. The goal of this multinational collaborative effort is to develop a high- power HF backscatter radar designed for unique observations of the near-earth magnetosphere, the mid-latitude ionosphere, and the middle and lower atmosphere. Preliminary design and development work for the necessary facility modifications has been completed by staff of the Radiophysical Research Institute (NIRFI) in Nizhny Novgorod, Russia. The present proposal requests support for a Small Grant for Exploratory research (SGER) to permit the immediate commencement of construction of the required new transmitting antenna, to be located at the existing Sura HF facility in Vasilsursk, Russia (56.13oN,46.10oE). It is extremely critical that construction of the antenna begin in Summer, 1993; otherwise, NIRFI personnel, equipment, and government support for this effort will be reassigned to other activities and not be available for future application to this project. ***